CAREER: Robust Learning via Optimal Transport

This NSF CAREER project aims to develop the mathematical tools required to build robust Artificial Intelligence (AI) systems that remain reliable in unpredictable, real-world conditions. While current AI models are highly effective in controlled settings, they can be fragile when faced with unexpected data shifts or adversarial attacks where data is geometrically manipulated to cause errors. The project will advance the state-of-the-arts by shifting from defensive methods that only patch specific vulnerabilities to a more universal approach that provides transferable certificates of robustness. This is achieved by training AI models against a generative adversary, a strategy that uses AI to identify the most realistic and challenging data variations a system might encounter. By preparing for these sophisticated challenges, the project ensures that a model’s safety guarantees remain valid even when it is deployed in a new environment. The intellectual merit of the project includes the establishment of new mathematical links between data geometry and robust learning. The broader impacts of the project include the release of an open-source software library called “skDRO,” the creation of new educational materials for students, and the development of more reliable AI technologies that support the national prosperity and security.

The technical goal of this project is to resolve the trade-off between computational tractability and certified robustness in Distributionally Robust Optimization (DRO). A major limitation of current adversarial training is that it often produces models robust only to specific, local perturbations, which lack transferability to broader distribution shifts. This project addresses this by using Optimal Transport (OT) to construct ambiguity sets around smooth data manifolds learned by generative models. The research frames the interaction as a game between a learner and a generative adversary, allowing for the discovery of a Nash Equilibrium that reflects the geometric nature of distributional uncertainty. This approach enables the PI to overcome the curse of dimensionality and establish tight, dimension-free generalization bounds. Furthermore, the project addresses dynamical problems by extending these static concepts to sequential settings. Inspired by the control systems community, the research incorporates Causal OT to ensure that robust policies are time-consistent. The final contribution is a unified set of Robust Bellman Equations that provide a rigorous path for learning policies that are provably resilient to misspecifications in the environment’s transition dynamics.